Neural Engineering Conference, October 11-14, 2000, Seattle, Washington

0086301
Durand
This award provides partial support for a special track in Neural Engineering as part of the annual Biomedical Engineering Society meeting in Seattle, Washington in October 2000. The meeting will 1) bring together scientists and engineers working in the area of Neural Engineering, 2) provide a opportunity for young scientists to organize and chair multidisciplinary sessions 3) provide mini-symposia in chosen topics of Neural Engineering 4) provide a forum for scientists, engineers and students to present their research in Neural Engineering through oral presentations and poster presentations. The Neural Engineering track is part of a larger scientific and engineering meeting whereby interaction and collaboration between neuro-scientists and biomedical engineers will be greatly enhanced.

The Annals of Biomedical Engineering is to publish a special issue dedicated to this Neural Engineering Track.